CIF: Small: Multidimensional Signal Processing With Box Splines

Abstract
This research develops a novel framework for interpolation and approximation of multivariate data.
The research introduces a method for construction of non-separable multivariate splines that are geometrically
tailored for general sampling lattices with emphasis on sphere packing and covering lattices
in multidimensions. These multivariate splines lead to the design of multidimensional signal processing
tools, that have proven degree of continuity and approximation order for sampling lattices.
The splines under investigation, called Voronoi splines, are B-spline-like elements that inherit the
geometry of any sampling lattice from its Voronoi cell and form basis for reconstruction. Furthermore,
the relationship of the proposed splines with the well-known multivariate box splines are investigated
and used for evaluation purposes. Compared to other polyhedral splines, Voronoi splines form shiftinvariant
spaces for approximation. This property makes them uniquely suitable for multidimensional
signal processing.